NeTS: Real-Time Communication Support in an Ubiquitous Next-Generation Internet

NeTS-NR: Real-Time Communication Support in an Ubiquitous Next-Generation Internet

Elizabeth Belding-Royer, UC Santa Barbara

Award 0435527

Abstract

The trend in Internet deployment is for more advanced, more capable, and more sophisticated applications combined with a growing part of the infrastructure as untethered, mobile nodes. These trends create a requirement for a truly capable and robust network infrastructure to seamlessly deliver data, including real-time streaming data (e.g. voice and video), even though nodes may have heterogeneous capabilities, be on the move, and/or be connected via a wireless link.

To meet the challenges of the evolving Internet, we are developing new solutions to better handle the emerging network and traffic challenges for the next-generation Internet. The next-generation Internet will need to support traditional services (e.g. streaming voice), next-generation applications (e.g. gaming,
social computing), and a set of applications we have not yet even conceptualized. We are building a network to support the significant functionality demanded by these applications. Our set of integrated research projects attempts to develop revolutionary cross-layer solutions for the support of voice and multimedia services in mobile networks. Specifically, we focus on three problems: (i) Coding support for real-time voice; (ii) Routing solutions for real-time applications; and (iii) Formalizing and extending wireless network testbeds.

As an educational impact, not only are we able to achieve traditional key educational objectives, but we are able to connect our work with specific projects at UCSB that expand education opportunities and diversity.